Intrinsically-Compensated Ultra-High-Q Silicon Resonators

INTRINSICALLY-COMPENSATED ULTRA-HIGH-Q SILICON RESONATORS
PROJECT SUMMARY
As MEMS technology evolves, it finds its way in an ever growing number and range of commercial
applications. In particular, silicon micromechanical resonators have the potential to replace conventional
electronic and mechanical devices in a variety of timing, sensing and spectral processing applications,
thus enabling the development of completely new products. There are, however, a number of areas where
the performance of such resonators lags significantly behind that of currently existing discrete
alternatives. These areas include the sensitivity of the resonant frequency to process fluctuations, its
stability with respect to changes in temperature, and the fact that the quality factor and impedance of
current silicon resonators degrades dramatically in the high UHF range (1 GHz and above). The goal of
the proposed research is to develop and demonstrate radically new technologies that will bring the
performance of silicon MEMS resonators to a level suitable for widespread insertion into commercial
applications. Specifically, the proposed research will advance the state of silicon MEMS resonator
technology in the following areas (intellectual merits of the proposed research):
(a) Deeper understanding of intrinsic loss mechanisms in silicon, and consequent development of ultrahigh-
Q silicon resonators that are completely compatible with standard IC fabrication processes, and (b)
development of zero-power temperature compensation techniques based on the engineering of material
properties and resonator geometries that avoid degradation of the Q of the resonator.
Dissemination of the scientific results will take place in the form of presentations at national and
international professional conferences, articles in technical journals, and university seminars. Technology
transfer to the commercial sector will be facilitated by the Georgia Electronic Design Center, whose goal
is to sustain the technology growth of the semiconductor industry by placing an emphasis on significant
long-term research.
Broader impact of the proposed research
This effort will promote advanced research and education in the area of micro and nano-mechanical
signal processing. Integration of research and education will be pursued through graduate and
undergraduate courses developed by the PI. These courses cover the principles of micro- and nanoelectromechanical
system analysis and design, with an emphasis on MEMS resonators. The course
material is constantly updated, and will include the results of research activities that are undertaken during
the course of the research project described in this proposal. The existing graduate level course on
“Interface IC design for MEMS and Sensors” will be augmented by hands-on laboratory sessions.
Involvement of undergraduate students in research and educational activities is another important task of
this proposal. To this end, the PI will seek applicants among the participants in the Summer
Undergraduate Research in Engineering/Science Program at Georgia Tech, a ten-week summer research
program designed to attract qualified minority students into graduate school in the fields of engineering
and science. The program has received highly favorable evaluations from past participants. It is hoped
that this unique experience will encourage these students to become applicants for graduate school in
ensuing years.